CAREER:Exploiting Gray-Box Techniques in Systems

Modern operating systems are large and complex code bases in which
hundreds of programmer-years have been invested. As a result,
modifying an operating system is a difficult, costly, and often
impractical endeavor. However, viewing the OS as an immutable object
is at odds with most OS research.

This research proposes techniques that enable the deployment of OS
ideas without changing OS source code. The thesis is that an OS-like
service can acquire information about the internal state of the OS and
control its behavior, even when no explicit interfaces to do so are
provided. With this approach, the OS is treated as a gray box, in
which the general characteristics of its algorithms are known; this
knowledge is then combined with run-time observations of how the OS reacts
to probes in order to infer its state and exert control.

Initial experience with gray-box systems points to additional areas of
research: automated discovery of algorithms, on-line benchmarking to
configure parameters, dynamic insertion of probes, and aggressive
inference of OS internal state. Thus, the goal of this proposal is
two-fold: to understand the theoretical foundations of gray-box
systems and to implement a toolbox of software for the rapid
development of gray-box systems.